Undergraduate Faculty Development Workshop in Software Engineering

Rochester Institute of Technology will operate a Faculty Development Workshop in Software Engineering for approximately 30 undergraduate faculty during the summer of 1988. Its objectives are (1) to broaden their awareness and understanding of software engineering and (2) to provide a forum where issues related to undergraduate instruction in software engineering can be presented and discussed. Workshop sessions will be conducted jointly by professors and industry participants. Staff from the Federally funded Software Engineering Institute will also participate. Ample laboratory time will be available for attendees to gain direct experience with new software engineering teaching and research tools. A two and one-half year computer conference dedicated to undergraduate instruction in software engineering will begin immediately after the Workshop. The significance of this project lies in the eventual increase in the numbers of undergraduate students who are able to receive effective and contemporary instruction in a field of vital national interest. In addition to the NSF funds, participants' institutions will contribute about 15% in travel costs to the operation of the project.